Field Theoretical Methods in Strongly Interacting and Strongly Disordered Condensed Matter Physics

TECHNICAL SUMMARY:
This award supports theoretical research and education under the umbrella of
the NSF-wide Mathematical Sciences Priority Area. This project lies at the
interface of theoretical condensed matter physics and mathematics.
Many interesting phenomena observed in the condensed matter physics
laboratory are dominated by strong interactions or strong disorder. The
understanding of such systems is typically very challenging, due to the limited
number of theoretical tools available for their description, standard paradigms
including for example Fermi-Liquid or other independent particle-type
approaches are often not adequate to capture the
The focus of the work supported under this award is the application and the
Development of novel theoretical methods aimed at treating such strong coupling problems. The focus of the research includes Non-Fermi-Liquid behavior in
Quantum Impurity Problems dominated by strong interactions, localization
Transitions in disordered electronic systems, and systems dominated by the
simultaneous effects of disorder and interactions. The PI will use methods
ranging from conformal field theory, to the functional renormalization group, and
the emerging field of the Stochastic Loewner Evolution.

NON-TECHNICAL SUMMARY:
This award supports theoretical research and education under the umbrella of
The NSF-wide Mathematical Sciences Priority Area. This project lies at the
Interface of theoretical condensed matter physics and mathematics.
This research focuses on problems at the frontiers of condensed matter theory
that involve materials or nanosystems with unusual properties. These often arise
as a consequence of strong interactions among electrons. Disorder, where the
positions of the atoms deviate significantly from highly ordered arrangements,
may also play an important role. Understanding the effects of these two factors
working in concert represents a formidable theoretical challenge. The PI will,
develop new theoretical tools, some that benefit from recent advances in the
mathematical sciences, to advance research on the combined effects of strong
interaction and disorder in materials. This research aims to advance fundamental
science and it interesting and important in its own right. It may also contribute to
the discovery of new phenomena and contribute to our understanding of complex
materials that hold promise for future technological applications. This research
activity will contribute to the education of the next generation of condensed
matter theorist.